Social Science Experts & Community Participation in Precursors to the U.S. War on Poverty

A central focus for research in science studies is the relationship between experts and society. This study will analyze the influence of social science experts in encouraging democratic participation in the formation and implementation of public policy. To explore this topic, secondary, archival, and oral history data will be examined in a qualitative historical study of social scientists employed in developing precursors to the U.S. "War on Poverty" Community Action Programs. Alternative theories will be considered in an analysis of the degree and nature of the impact of political and other social forces on the activity of social science experts. These theories will also be used to analyze conflicts in work roles and assumptions of the social scientists in shifting from a "scientific" to a "professional reformer" model of expertise. This shift occurred during this period. Other research questions focus on the social scientists' conceptualization of community participation, the persons served by their actions, and the impact those actions had. The results of this study will expand our understanding of both the potential and limitations of the use of social science experts in the promotion of citizen participation in community reform initiatives. Results will include a book manuscript and articles in refereed journals and other publications. This research has an important and timely focus; its results will be useful and accessible to a wide audience. The qualifications and track record of the investigator are excellent; institutional support is very good; the research plan is sensible. Support is highly recommended.